Indicators for the Information Society

The rapid growth and development of the information and communication technologies has led to wider diffusion and application, and consequently increased their economic and social impact across OECD Member countries, and beyond. As the pace of change associated with information and communication technologies accelerates, it is becoming apparent that so too must the methodological and statistical work that attempts to measure it and that this could be best accomplished through a collective research program conducted under the auspices of the Organisation for Economic Cooperation and Development (OECD). This project will strive to create a rigorous statistical basis for the collection of internationally comparable statistics in these areas to support the creation of indicators and policy analysis of these studies.